Geodesic currents on free groups and the Outer space

Abstract

Award: DMS-0904200
Principal Investigator: Ilya Kapovich

The outer automorphism group of a free group is a more
complicated and much less well understood cousin of the modular
group of a Riemann surface. The project aims to study the outer
automorphism group of a free group via analyzing the interaction
between the Culler-Vogtmann Outer space (the traditionally
considered free group analog of the Teichmuller space) and the
space of geodesic currents on a free group. A geodesic current is
a measure-theoretic generalization of the notion of a closed
curve or a conjugacy class. The space of geodesic currents turns
out to be a natural companion of the Outer space and studying
them together should produce substantial new information of the
dynamics and geometry of the outer automorphism group of a free
group. A key tool to be used for such study is the so-called
``geometric intersection form'' introduced in the earlier work of
the proposer. Specific questions to be studied include: studying
the geometry of various free group analogs of the curve complex,
constructing domains of discontinuity and developing a theory of
convex co-compactness for subgroups of the outer automorphism
group of a free group, developing a theory of generalized (or
``non-commutative'') currents, and others. In combinatorics and
computer science there is an active search for theories of words
based on domains other than an integer segment (e.g. the integer
lattice of the Cayley graph of a free group). The theory of
generalized currents, introduced in the proposal, provides a good
model of this kind that should be useful in the study of words
based on non-linear domains. The proposal aims to develop this
theory further and to investigate in more detail the interactions
between geometric group theory and computer science that arise in
this context.

The goal of the project is to study dynamics and geometry of the
outer automorphism group of a free group, one of the most
mysterious, interesting and least understood mathematical
objects. Among the key ideas is the use of a new tool, called a
``geodesic current'', which allows one to bring substantial new
machinery and techniques from analysis and ergodic theory to the
subject. The project will also explore, via the notion of
generalized geodesic currents, interactions between geometric
group theory and computer science, aimed at understanding new
types of data structures - namely words that, unlike standard
words, are not written on straight line segments. A significant
component of the project includes REU (``Research Experience for
Undergraduates'') activities, that will involve
U.S. undergraduate students in advanced mathematical research and
help prepare them for future careers in science and technology.
The proposed research has served as a basis for a project, funded
for two years, under the umbrella of the UIUC-CNRS institutional
collaborative agreement, for collaborative research in geometric
group theory between researchers from UIUC and Marseille. The NSF
grant will be used to expand and enhance that project, to involve
additional research groups and to further build up institutional
international research ties between UIUC and CNRS.